Dynamics Days 2009 Conference; San Diego, CA; January 2009

This proposal request funds to support the annual International Conference on Chaos and Nonlinear Dynamics: Dynamics Days 2009, to be held at the DoubleTree Hotel, San Diego, California on January 8-11, 2009, and hosted by the University of California,San Diego. The principal co-organizers are Professors Michael Todd ([email]) and Herbert Levine ([email]), of UCSD’s Engineering and Physical Science Divisions, respectively. Dynamics Days is an annual conference organized with the specific purpose of providing an interface for researchers from diverse scientific disciplines but with common interests in nonlinear dynamics, chaos, and complex systems. This meeting has become internationally known as a very effective mechanism for researchers to share their most recent results in understanding, modeling, and controlling nonlinear dynamical systems.